Flow Through Heart Valves and Large Vessels

This research project continues the work of the principal investigators in the area of fluid dynamic performance of heart valves and flow through curved vessels such as the aorta. The investigators plan to continue their theoretical and experimental work to complete a model of flow in curved tubes and to examine the turbulent flow through heart valves. The latter will be done using ultrasound Doppler measurements.